Conference on Neural Control of Behavior, February 5-8, 2004, at UCLA Los Angeles, CA

This Conference on the Neural Control of Behavior will be held at UCLA. It addresses technical innovations that are now being applied to unconventional model organisms. Participants in this program possess expertise in behavioral neuroscience, neuroendocrinology, endocrinology, animal behavior, and developmental biology. The conference will engage both senior and junior ranked scientists and students in discussions regarding ways that investigators can take their research in new directions. Travel funds will allow participants to attend the meeting.
The impact of this will extend to numerous fields of study, as mentioned above. In addition, the meeting will foster scientific education by training graduate and undergraduate students to participate in comparative biological research armed with a clear understanding of novel sophisticated technology placed in the framework of behavioral questions. Assessment tools will be utilized to develop strategies for organizing next years meeting..